PSE2015/ESCAPE25

1522785-Eden

This funding is for the 12th Process Systems Engineering (PSE) and 25th European Symposium on Computer-Aided Process Engineering (ESCAPE) Joint Event to be held in Copenhagen, Denmark May 31 - June 4, 2015. This will be the 727th event of the European Federation of Chemical Engineering (EFCE). The primary goal of PSE2015/ESCAPE25 is to create an academic and industrial dialogue, a critical assessment of existing enabling technologies, a discussion on research, education, industrial needs, and a forum for new directions, challenges and opportunities in product and process design. The PSE2015/ESCAPE25 conference will feature three plenary lectures, around 40 lectures by world-renowned experts, as well as other paper and poster sessions. The conference aims at attracting 500-600 participants and over 450 contributed papers. A particular emphasis will be placed on increasing the participation of graduate students and postdoctoral associates. Funds are to provide partial support for US graduate students, postdoctoral associates and academic junior faculty speakers.

Intellectual Merit :
1. PSE2015/ESCAPE25 will bring together and foster interaction among world-renowned experts from academia and industry, researchers and practitioners from government laboratories and several industries, graduate students, and post-doctoral associates.
2. PSE2015/ESCAPE25 will create a technical and scientific forum for the topics of: Modelling, numerical analysis and simulation; Mathematical programming (optimization); Cyber-infrastructure, informatics and intelligent systems; Process and product synthesis/design; Process dynamics, control and monitoring; Abnormal events management and process safety; Plant operations, integration, planning/scheduling and supply chain; Enterprise-wide management and technology-driven policy making; and Domain applications (molecular, biological, pharmaceutical, food, energy, and environmental systems engineering).
3. PSE2015/ESCAPE25 will foster the definition of new problems and challenges in the area of process systems engineering that will be motivated by changing industrial needs and feedstock availability.

Broader Impacts :
1. PSE2015/ESCAPE25 is expected to attract the new generation of researchers in the process systems engineering area that is reflected in the graduate students and postdoctoral associates.
2. The conference will serve as a vehicle for dissemination of the state of the art in process systems engineering through its fully indexed and citable proceedings that will include the plenary and contributed papers, its website, and more importantly through the informal discussions on research, education, training and industrial needs.
3. The chemical, petrochemical, pharmaceutical, manufacturing, and services/software industries will benefit by the introduction of new approaches, problems and technologies for discovery through computer-aided product and process design. Such technologies will lead to better products, faster response to the demands and more efficient utilization of the product and processing facilities, which has a direct benefit to the US economy.
4. The conference and conference products may serve to encourage a new generation of young people to consider research and practice in process systems engineering.